Mathematical Sciences: Geometric Function Theory and Classical Analysis

Work will be done on problems in three areas of complex function theory. In the first, the principal investigator plans to expand his work on zeros of entire functions of bounded order. This work will follow up on his recent solution of the Polya- Wiman conjecture concerning real entire functions with real zeros. There is one remaining case where the order of the function is exactly two, and this will be treated through the analysis of functions in the Laguerre-Polya class. Work is also planned on analytic functions whose derivatives are square integrable with respect to area. This is the so- called Dirichlet space. The question of interest here is whether a univalent function is a multiplier for his space if the area derivative of its derivative (squared) is bounded by the lograrithmic capacity of the underlying set. A third research area deals with conformal or Rieman n maps of discs. The goal here is to find geometric properties of the target region to ensure that the mapping function satisfied Bloch or Lipschitz growth conditions. Previous work on Holder domains should be applicable to this effort. Applications of this research can be found in potential theory, fluid flow and grid transformations for two dimensional numerical approximations.